Data Structures and Combinatorial Algorithms

Abstract The purpose of this project is to discover and to understand efficient data structures and combinatorial algorithms and the tools and techniques by which they can be discovered and analyzed. The goals are four-fold: o to devise specific algorithms and data structures tailored to the needs of various importatnt combinatorial problems, thereby producing more efficient solution methods for these problems; o to develop implementations and perform empirical studies with these new methods and their older competitors, with the aim of understanding their essential properties and developing improved variations; o to perform theoretical studies of the worst- and average-case performance of the methods under consideration, with the aim of being able to predict which method is most suitable in a given situation; o to develop general themes of design and analysis, and to apply these themes systematically in the construction of new algorithms and data structures.